Linear and Nonlinear Scanning Acoustic Microscopy with Obl- ique, Off-Specular Geometry

The acoustic microscope is a recently invented device for observing the mechanical properties of material. It has been observed that these observations are enhanced by the use of non-specular reflections and by high acoustic intensities. This research continues a research program to apply confocal but non-aligned beams to improve the edge contrast, detail, and resolution in acoustic microscopy. Variations in the geometry of the instrument and combinations of transducers determine the usefulness of the new configuration. This research has application in non-destructive testing, microbiology, and other areas.